Equipment for Undergraduate Instruction in Biochemistry, Molecular Biology and their Applications in Biotechnology.

Two laboratory courses are being developed which are giving undergraduate Biology majors experience with state-of-the-art techniques in modern Biochemistry and Molecular Biology. The project's focus is on preparing Hispanic women and other minority and non-traditional students for careers in local Biotechnology-based industries. Courses affected include (in addition to Biochemistry) DNA Technology, Genetics and Immunology. Existing equipment for spectrophotometry, ultracentrifugation and isotope counting is being supplemented by essential additional electrophoretic and chromatographic equipment obtained through this grant, making it possible to offer laboratory work in courses where previously such opportunities were lacking.